Dissolution Inhibition in Positive Novolak Resists

The dissolution of novolak polymers and other hydroxylic resins will be studied in terms of a molecular model where the rate of dissolution is controlled by percolative diffusion of base into the solid matrix. The percolation theory provides a scaling law for the dependence of dissolution rate on the concentration of hydrophilic sites (hydroxyl groups). The materials to be studied will be novolak resins from mixtures of o-cresol and p-cresol, and copolymers of hexafluorodimethylhydroxystyrene and styrene. Dissolution inhibition of novolak and other resins is the basis of the most important imaging materials in the semiconductor industry. Yet the nature of this phenomenon is incompletely understood. This research aims to provide an explanation in terms of the hydrophilic-hydrophobic balance in these resins.